Weil-Etale Cohomology and the Tamagawa number conjecture

Abstract for award DMS-0701029 of Matthias Flach

The aim of the project is to define and study a new Grothendieck
topology (the "Weil-etale topology") in connection with special
values of Hasse-Weil L-functions of varieties over number fields
(the "Tamagawa Number conjecture"). The idea of such a topology, as
well as a first definition, is due to Lichtenbaum who also shows the
expected relationship to the L-function in the simplest case of a
zero-dimensional variety. However, truncation of the complex
computing Weil-etale cohomology is necessary because in even degrees
greater than two the cohomology group is nonvanishing and of
infinite rank. One goal of the project would be to redefine the Weil
etale topos of the ring of integers of a number field so that it has
bounded cohomology as well as a number of other properties such as a
map to the etale topos and to the classifying topos of the real
numbers. A second goal is to find a definition of the Weil etale
topos for higher dimensional arithmetic schemes of characteristic
zero (the case of finite characteristic is already well understood
due to work of Lichtenbaum and Geisser). A third, more speculative
goal would be to reprove the analytic class number formula using the
Weil-etale topology with the aim of generalizing it to Artin
L-functions. One interesting aspect of this project is the
interaction of topos theory and logic with more classical and well
established number theory, such as the analytic class number
formula.

Diophantine equations and their solutions have occupied the
imagination of mathematically interested people for centuries but
they also have found real world applications in coding theory.
Modern mathematics provides a bewildering array of techniques,
ranging from the disarmingly simple to the highly abstract, to study
diophantine equations. The geometric perspective, viewing the
solution set as a "space", has been particularly useful. The project
aims to contribute to this line of thought by defining and studying
a new cohomology theory for diophantine equations.